NSF Young Investigator

Current "engineering models of human performance" can predict the processes experts use to accomplish tasks with a computer system and the time it takes to complete these tasks. In this project the models are extended to predict the problem-solving behavior exhibited by novice computer users, learning in realistic situations, and their commission and detection of errors. As is the case with the previous models of expert users, these new models can be used by computer developers who understand the predictive power of these improved models of behavior to evaluate alternative interface approaches early in the specification stages of their design, even before running systems or prototypes are available.